Collaborative Research: III: MEDIUM: Responsible Design and Validation of Algorithmic Rankers

Data-driven systems employ algorithms to aid human judgment in critical domains like hiring and employment, school and college admissions, credit and lending, and college ranking. Because of their impacts on individuals, population groups, institutions, and society at large, it is critical to incorporate fairness, accountability, and transparency considerations into the design, validation, and use of these systems. Current research in this area has mainly focused on classification and prediction tasks. However, scoring and ranking are also used widely, and raise many concerns that methods designed for classification cannot handle because classification labels are applied one item at a time, whereas ranking is explicitly designed to compare items. This project is focused on algorithmic score-based rankers that sort a set of candidates based on a “simple” scoring formula. Such rankers are widely used in critical domains because of the premise that they are easier to design, understand, and justify than complex learned models. Yet, even these seemingly simple and transparent rankers may produce counter-intuitive results, unfairly demote candidates that belong to disadvantaged groups, and be prone to manipulation due to sensitivity to slight changes in the input data or in the scoring formula. Addressing these issues is challenging due to the interplay between the data being ranked and the ranker, the complex structure within the data, and the need to balance multiple objectives.

This project considers the core technical challenges inherent in the responsible design and validation of algorithmic rankers, and pursues three synergistic aims. Aim 1 is to develop methods to quantify the impact of item attributes, and of specific engineering choices regarding attribute representation and pre-processing, on the ranked outcome (validation). This information is then used to guide the data scientist in selecting a scoring function that corresponds to their understanding of quality or appropriateness (design). Aim 2 is to develop methods to quantify the impact of data uncertainty, of slight changes in the scoring formula, or both, on the ranked outcome (validation). This information is then used to guide the data scientist in intervening on data acquisition and pre-processing to reduce uncertainty, and in selecting a scoring function that is sufficiently stable (design). Aim 3 is to develop methods to quantify lack of fairness in ranked outcomes, with respect to candidates from under-represented or historically disadvantaged groups, in view of multiple fairness objectives and potential intersectional discrimination (validation). This information is then used to identify feasible trade-offs and assist the data scientist in navigating these trade-offs to enact fairness-enhancing interventions (design). Outcomes of this work will impact the practice of scoring and ranking in critical domains like educational program admissions, hiring, and college ranking. Insights from this work will enable technical interventions when appropriate, and also identify cases where they are insufficient, and where more data should be collected or an alternative screening process should be used. This project will also include teaching and mentoring, public education and outreach, and broadening participation of members of under-represented groups in computing.